Upgrading the Undergraduate Experience with the Earth Resources Data Analysis System (ERDAS)

The undergraduate program for majors and minors in the Department of Geography and Environmental Studies is being expanded, updated and strengthened at Slippery Rock University through the utilization of the Earth Resources Data Analysis System (ERDAS). This powerful, yet moderately priced system includes a microcomputer-based (IBM PC/AT- enhanced) work station which supports peripheral hardware and supporting software. Students are learning how to generate digital data bases (using a Digitizing Tablet and Video Digitizer) in order to analyze spatially distributed phenomena (with Image Processing, Geographic Information System Module and Topographic Module) in evaluating natural resources. Also provided is instruction in data plotting in a cartographically accurate format using the Color Hardcopy Module.